International Workshop on Nonlinear Phenomena to be held in Santiago, Chile, 6-15 September 1990

This award supports an international workshop on nonlinear phenomena to be held in Santiago, Chile at the University of Chile from September 6-15, 1990. The U.S. organizer is Jacobo Rapaport of Ohio University and in Chile there are several organizers headed by Patricio Cordero of the University of Chile. There is an international organizing committee which includes scientists from Argentina and Brazil as well as from Chile. The participants will come from Mexico and several countries in Europe, the U.S. and Argentina, Brazil and Chile. The workshop will cover research topics in fluid dynamics near equilibrium (theoretical and experimental), fluid dynamics far from equilibrium (turbulence and chaos), phase transitions and critical phenomena, nonlinear phenomena in condensed matter physics (quantum Hall effect, high temperature superconductivity, etc.), mathematical modelling (cellular automata, neural networks, learning machines). An objective of this workshop is to give the opportunity for young physicists to become acquainted with current problems in nonlinear physics. In addition, it will provide an interactive environment for the exchange of ideas and the identification of research topics which will promote future collaborations and scientific cooperation among the research communities. The workshop will also bring together Latin American physicists which is not always easy to do. These are all good examples of fulfilling the goals of the Science in Developing Countries program.